RUI: Study of Chalcogenide Glassy-Films for Use in Real- Time Holography.

9217302 Islam Systematic quantitative optical studies of thin films of the family of Ge-Sn-Se-Te glasses will be made. The studies will focus on identifying how well these glasses may be suitable for use as real- time holographic recording media. ***